Study of Heavy Quark Physics with the BaBar Detector

9973902
Burchat
This POWRE award provides supplementary support for the PI's activities as Physics Analysis Coordinator for the BaBar experiment, a major international collaboration of about 600 experimental particle physicists designed to investigate the source of differences in the time evolution of matter and antimatter. The role of Analysis Coordinator, who reviews all aspects of the BaBar experimental analysis, is critical to the efficient management of the BaBar activity, especially during the 1999-2000 academic year, when the first experimental results will be appearing. The present funding allows the PI to devote full time to this effort, thus strengthening her position within the collaboration. The award is funded by the NSF POWRE program, the Office of Multidisciplinary Activities in the MPS Directorate, and the Physics Division.